Envelope Models and Methods for Efficient Multivariate Analysis with Applications to Tissue Engineering

The investigator and his colleagues propose to develop a new class of statistical tools -- called envelopes -- for studying multivariate data. Enveloping is based on novel parameterizations that use reducing subspaces to link a location matrix L with a dispersion matrix D. For instance, the outer envelope is the smallest reducing subspace of D that contains the span of L, while the inner envelope is the largest reducing subspace of D that is contained within the span of L. In multivariate linear regression, the maximum likelihood estimator of the coefficient matrix L based on an envelope model can be substantially less variable than the maximum likelihood estimator under the classical normal model, particularly when the mean function varies in directions that are orthogonal to the directions of maximum variation for the dispersion matrix. It is expected that similar results will hold in other multivariate areas, like discriminant analysis and functional data analysis. Enveloping is a new paradigm for addressing multivariate statistical problems that has the potential to facilitate interpretation, to improve analyses that might otherwise be tenuous and to produce truly massive gains in efficiency relative to standard methods.

Technological advances in many scientific fields have been followed by configurations of multivariate data that strain or are beyond the capabilities of standard statistical theory and methods. More than ever before, understanding experimental evidence and exploring scientific hypotheses require methods to meaningfully study contemporary data. This is particularly true in the life sciences, where the ability to extract the relevant information from a complex body of data is paramount. The investigator and his colleagues plan to study a new class of multivariate statistical methods that are capable of efficiently extracting relevant information for a given purpose from complex data. For instance, the overarching goal in tissue engineering is to gain the ability to replace damaged human connective tissue with viable tissue patches fabricated in vitro. Current technology has failed to reach this goal because tissues grown in vitro lack adequate mechanical integrity for in vivo applications. The mechanical integrity of tissues is controlled by a network of several hundred intercellular signaling proteins that shape long-term tissue growth and can be measured by mass spectrometry. The statistical objective here is to identify the most important stimuli and to extract the relevant information by reducing the signaling proteins to a few key protein indices that can be monitored during in vitro growth and directed by the external stimuli.